Implementation of the National Council of Teachers of Mathematics Standards in Discrete Mathematics, Phase II

9550002 Kenney IMPLEMENTATION OF THE NATIONAL COUNCIL OF TEACHERS OF MATHEMATICS STANDARD IN DISCRETE MATHEMATICS, PHASE II Boston College will develop a nationwide cadre of 300 grade 7-12 teachers at six sites (California, Georgia, Massachusetts, Michigan, Nebraska, and Ohio) who will activate the discrete mathematics standard in their classrooms and share instructional experiences with their students and colleagues. The three-year project, which builds on an earlier NSF-supported project, also targets 60 collegiate faculty who teach mathematics or mathematics education courses to future teachers. Participants attend a three-week summer institute and two in-service follow-up days during the subsequent academic year, and maintain e-mail (and other) communication with a designated instructional team member. The college faculty participate in these same activities, implement a course in discrete mathematics or topics in discrete mathematics within an existing course that includes pre-service teachers at their home institutions, and conduct other in-service activities in discrete mathematics as professional development opportunities for teachers. Summer institutes include opportunities for both residential and commuter participants. Summer institutes and follow-up activities target discrete mathematics content and pedagogy, leadership, equity, and assessment. Project evaluation includes assessment of progress in achieving project goals and objectives, effectiveness of participants, and project impact at the classroom and school or district level. Cost-sharing from the universities housing the six project sites represents 18% of the NSF award amount.